Triannual Ahlfors-Bers Colloquium, May 2008 at Rutgers-Newark

This award will support the participation of invited speakers, junior faculty, postdocs, and graduate students in the 2008 Ahlfors-Bers Colloquium, the fourth in a triennial series of conferences that celebrate the mathematical legacies of Lars Ahlfors and Lipman Bers. It will be held at Rutgers University-Newark from May 10-12, 2008.

The colloquium program will feature ten to twelve one-hour plenary talks by a diverse group of established senior scientists (e.g., David Gabai, Ursula Hamenstadt, William Minicozzi, Stephanie Petermichl, Stas Smirnov). Younger mathematicians will have the opportunity to speak in a workshop that will run before the formal colloquium program begins.